The Efficient Implementation of the Icon Programming Language

This research proposal is concerned with the efficient implementation of the Icon programming language. The main problems are: o The generation of efficient code for expressions in Icon, which may produce sequences of results and perform goal-directed evaluation with novel control structures. o The detection and handling at compile-time of operations that otherwise would have to be dealt with at run-time. o The representation of a wide variety of data and aggregates of data with sophisticated access mechanisms. o The dynamic allocation and collection of space for such data over a range of computer architectures. These problems will be approached by designing conceptual models, developing algorithms, and implementing the results. Tools for measuring the performance of the results will be developed and used in conjunction with design and implementation. The goals of this research are: (1) to provide a production-quality implementation of Icon, which will be valuable in its own right, (2) to provide fundamental insights into implementation techniques for such programming languages, and (3) to provide models, algorithms, and tools for such implementations.